Fiber Optic Corrosion Sensing on and within Materials

9361821 Ambrose the corrosion of metallic structural members often severely damages or compromises the associated structural system. If the corrosion is detected at an early stage, remedial cost effective preventive actions can be undertaken. The methods will help to solve some of the problems that corrosion presents by early detection and remediation. The development of a simple, cost effective means of detecting certain types of corrosion employing fibers optics is to be done. The means by which the detection will be done consist of first, a simple peak color shift corrosion detector and secondly, a sol gel evanescent wave sensor.